Student Conference Participation Support at the 2011 MSEC/NAMRC/ICM&P; Corvallis, Oregon; June 13-17, 2011

This award provides support for 62 students to attend the premier conferences on manufacturing in the United States, the jointly held 2011 American Society of Mechanical Engineers International Manufacturing Science and Engineering Conference, the 39th Annual North American Manufacturing Research Conference, and the Japan Society of Mechanical Engineers International Conference of Materials and Processing, June 13-17, 2011, in Corvallis, Oregon. The funding opportunity will be broadly announced, affording students ample notice and time to apply. Applications will be reviewed by committee, and $400 in support will be provided to the winning students.

The students will have an opportunity to present their research at the conferences and to see over 500 papers and 40 posters, which will be presented at the conferences. They will have a chance to interact with other students and faculty from their field, and to gain valuable insights for the start of their careers. This will help to improve America's supply of manufacturing engineers.